Undergraduate Faculty Workshop: Environmental Management

The objective of this workshop is to present both a course and develop a problem workbook supporting undergraduate instruction in these critical and wide ranging areas. Offering such a course to 20 undergraduate teaching faculty and involving them in development of supporting teaching materials will significantly enhance their understanding of current environmental management subjects and help them update and develop new courses in this area. Problems and solutions generated by an interdisciplinary team of engineering and applied science faculty invited to attend the workshop will form the basis of the workbook generated from this effort. Topics to be included in the workbook are: fundamentals, regulations, risk assessment/risk communication, pollution prevention, sustainable development, air/water/solid waste management, hazardous waste management, indoor air pollution, environmental ethics, environmental justice, ISO14000 and global environmental management. The first draft of the problem workbook will be prepared during a two-week summer workshop at Utah State University in June, 1996. The 1996-1997 academic year will provide an opportunity for participants to classroom test the effectiveness of the teaching materials provided to them in the workshop, and the problems contained in the workbook. A three-day follow up summer session in late June, 1997 is scheduled at Manhattan College to provide an opportunity to revise, update, and edit the workbook, and finalize production and distribution plans for implementation in undergraduate engineering and applied science curricula. This project is proposed as a collaborative effort between universities (Utah State University, Logan, Utah; Northern Arizona University, Flagstaff, Arizona) and a four-year undergraduate college (Manhattan College, Riverdale, New York). The Program Director and co-Directors have over 50 combined years of experience in environmental management, have been successfully involved in NSF U ndergraduate Faculty Enhancement projects in the past, and are involved in minority and Native American retention and training efforts at their institutions.